Fifteenth International Conference on the Application of Accelerators in Research and Industry

9813785
Duggan
The Fifteenth International Conference on the Application of Accelerators in Research and Industry is the latest in a series of biannual conferences devoted to a wide variety of recent developments in, and uses of, accelerators. The conference includes speakers who are major players in their respective fields. A growth area to be featured this year will be materials science with ion beams.